Support of Activities under the U.S.-China S&T Commission Meeting

NSF support for expenses incurred in the course of the June 13- 20, 1987 meeting of the U.S./China Joint Commission on Science and Technology.